Moment Connections Between Steel Beams and Reinforced Concrete Columns

Recently, composite building systems in which a concrete frame handles lateral loads and steelframing handles gravity loads have gained popularity. The connections between the steel floor beams and the concrete columns are generally designed as a simple shear connection. A properly detailed steel beam-concrete column (or wall) moment connection in mixed structural system or subsystem could result in substantial economy, especially where lateral load resistance is required. The purpose of this project is to develop information regarding the behavior of moment connections between steel structural members to concrete columns or walls. Analytical models will be developed which describe the strength and stiffness of the connections. The analytical work will be guided by a test program involving relatively simple models to represent the fundamental shear transfer mechanisms. To develop design guidelines, a series of beam-column connections will be tested.